Multi-Scale Statistical Approach to Critical-Area Analysis and Modeling of Watersheds and Landscapes

Public agencies and corporate landholders are developing and maintaining major environmental databases for computerized mapping and analysis. The cost of such databases increases rapidly with increasing spatial detail. This project undertakes the development of objective and efficient methods for determining patterns of spatial variation from such databases - particularly relating to water resources and landscape ecology - and for making pattern comparisons between databases having different levels of detail. Comparison of patterns emerging from data at different levels of detail will enable managers to select the appropriate spatial resolution necessary for particular purposes. Cost efficiency will also be increased by the ability to indicate likely zones of spatial uncertainty and detect areas of disagreement between alternate hydrologic models, so that detailed data acquisition can be better targeted and modeling will be more precise. Application of these approaches will provide a better basis for districting watersheds, reducing the costs of monitoring and detecting the need for remediation.